POWRE: Analysis of Specialized Constraint Models for Engineering Design

EIA-9870404
Sitharam, Meera
Kent State University

POWRE Research Enhancement: Analysis of Specialized Constraint Models for Engineering Design

This work is a departure from the past PI's research effort and an attempt to diversify into specific problem-areas in Computer Science and Engineering where immediate practical relevance and hard-core experimental verification are the bottom line. The work encompasses two pilot exploratory research projects. The first project concentrates on key, missing technology for decomposition of geometric constraint systems into small, compact subsystems whose solutions can be recombined. The second project involves development of a comprehensive noncooperative resource allocation model and analysis, specifically for designing QoS provision architectures in best-effort environments, with particular emphasis on bridging the gap from theory to realizability. In both projects, rigorous analyses will be performed and small, prototype implementations developed.